KDI: Unsteady Flows with Dynamic Boundaries: Experiment and Computation Interacting in the Virtual Environment

Peskin
9980069
Unsteady fluid flows driven by dynamic boundaries are among
the most difficult flows to simulate and visualize. Whether
drawn from polymer rheology, microflight, or cardiac fluid
dynamics, these problems involve structures on many length and
time scales, strong coupling between the fluid and a deformable
boundary, and complex geometry. The investigator and his
colleagues, taking the problems of insect flight and heart
function as focal points for a multidisciplinary collaboration,
seek a new paradigm for understanding boundary-fluid dynamics.
This new paradigm involves both numerical simulation and
experimental investigation, brought together through the emerging
technology of virtual reality. On the numerical side, they
develop new adaptive and hierarchical numerical techniques, as
well as improve existing methods (immersed boundary and adaptive
grid), to enable interactive simulation experiments and steerable
computation. The experimental program focuses both on methods
that can be used to validate and complement the results of
numerical simulations, and on novel techniques for the study of
unsteady flows with dynamic boundaries. Computational and
experimental approaches are integrated within a virtual
environment that enables a researcher to modify interactively the
parameters and geometry of the simulated system, steer
computational processes, flexibly visualize experimental data,
and use experimental data to guide computation.
When unsteady three-dimensional flows interact with dynamic
boundaries such as heart valves and insect wings, the resulting
fluid dynamics defy easy representation and conventional
analysis. The tight coupling between boundary and fluid, the
differing and interacting length and time scales, and the
complexity of turbulent motions make these problems a formidable
theoretical and computational challenge. Breakthroughs in
understanding this class of problems will enable important
advances in fields such as medicine, biology, aeronautics, and
chemical engineering. Achieving such breakthroughs is the goal of
a collaboration between researchers from NYU's Courant Institute
of Mathematical Sciences (CIMS) and the University of Washington
(UW), with combined expertise in mathematics and computation,
experimental laboratory investigation, and scientific
visualization. Heart valve function and insect flight cannot be
explained by classical arguments based on steady flow. Millions
of years of evolution have produced shapes, feedback mechanisms,
and boundary properties in response to the complexity of the
boundary-fluid interaction. A greater understanding of these
interactions between boundary and flow will open the door to new
generations of artificial heart valves, small and highly
efficient flying machines, and other devices carefully designed
to interact with the complex but repeatable behaviors of boundary
dominated fluid flows. A key goal of this project is the
integration of experiment and computation in a virtual
environment that facilitates the involvement of the human
investigator. The project strives to change the paradigm of
research in this area. A researcher should be able to modify the
parameters and geometry of a simulated system while the
simulation is running; to steer, for a given simulated system,
the computational process itself; to use experimental data to
guide the computation; and to process and interact with the
experimental data, while visualizing it in three dimensions as
well as over time. While the focus is on the core studies of
insect flight and heart function, extrapolation from these core
examples should enable breakthroughs wherever fluids (including
gases) interact with structures of complicated and possibly
dynamic geometry. This KDI project is supported by the Division
of Mathematical Sciences, the Division of Integrative Biology and
Neuroscience, and the Division of Chemical and Transport Systems.